Extending the Baseline of Climate Variability Using Laminated Sediments from Semi-Isolated Marine Basins in Southern Chile

Abstract ATM-9509504 Anderson, David M. University of Colorado Title: Extending the Baseline of Climate Variability Using Laminated Sediments from Semi-Isolated Marine Basins in Southern Chile This award supports the recovery and analysis of laminated marine sediments spanning the last few thousand years in southern Chile. Annually-resolved paleoclimate information from southern South America is needed to understand the regional signal of global warming, and also to understand the teleconnections between tropical and mid-latitude regions of the southern hemisphere. Proxy records of temperature and precipitation (related to the southern westerly winds) derived from marine sediments can substantially improve the inventory of baseline climate records in this region where instrumental data are sparse. Marine records provide a valuable complement to terrestrial proxy records derived from tree-rings and lake and bog sediments, and a direct proxy (d18O) for rainfall driven by the southern westerly winds.